Upgrading of Undergraduate Structural (Seismic) Testing Laboratories.

The undergraduate seismic laboratories will be improved with the addition of two model shaker stations. This will give architectural engineering students first hand experience in the use of modern seismic testing equipment to verify the fundamental concepts of structural behavior. The two shaker stations will be equipped with Acoustic Power Systems Electro-seis horizontal shakers, VIPAC vibration testing workstations for test control, data acquisition and processing and a Hewlett Packard spectrum analyzer and plotter. The stations will allow senior architectural engineering students to experimentally investigate not only fundamental dynamic properties and response of small-scale building structures but also the relationship between structural stiffness and corresponding natural frequencies.